REU: Character, Origin, and History of Pleistocene Deposits in South-Central Minnesota

9732595 Johnson The goal of the 1998 REU project at Gustavus Adolphus college is to nurture the development of underrepresented individuals in the geological sciences. Eight undergraduate women will conduct field and laboratory research to determine the character, origin, and history of Pleistocene deposits in south-central Minnesota. Four of the women will be selected from Gustavus students; the other four from outside the institution. The individual research projects are concerned with till stratigraphy of south-central Minnesota, genesis of late-Wisconsin till (possible deforming-bed till) and its underlying boulder pavement, geomorphology and origin of surface features of the Des Moines Lobe, and character and sedimentology of tributary outwash streams compared to deposits of River Warren (outlet to Lake Agassiz). These projects will require the participants to learn and apply various geologic research techniques including outcrop description, laboratory analysis, map analysis, and statistical analysis on the computer. ***